Acquisition of Growth Chambers for the National Phytotron

ABSTRACT Duke University requests $700,000 to enhance capabilities of the National Phytotron by the addition of 18 new controlled environment (CE) chambers. The Phytotron, an NSF-funded national research facility established in 1968, consists of 40 artificially lighted CE growth chambers and 6 glasshouses that provide more that 477 m2 of controlled environmental space for advanced research in environmental plant biology. These CE units are used to reproduce different types of environments -- ranging from the arctic to the desert to the tropics. This allows researchers to have precise control over environmental conditions, e.g., air temperature, irradiance, carbon dioxide, relative humidity, and nutrient concentration, thereby providing an opportunity to gain increased understanding of the complex interactions between plants and their environment, which is virtually impossible to do under natural, uncontrolled field conditions. The Phytotron hosts, on yearly average, 17 students, 4 postdoctoral scientists, and 20 senior scientists, 73% of whom are off - campus users. The Phytotron's current CE growth chambers have operated continuously for 25 years. While some have been upgraded, their limited analog controls are not adequate for precise and flexible control of multiple environments variables, e.g., temperature, light, and humidity. In addition, these older chambers lack sophisticated computer-based monitoring capabilities, thus limiting researchers' abilities to monitor experiments and to reproduce short-term, variable environmental conditions, which are critical to understanding processes like carbon allocation, photosynthesis, and acclimation. Over the past decade, the environmental factors that researchers have most frequently manipulated in the Phytotron are the effects of carbon dioxide and temperature -- other factors include drought stress, nutrient availability, photoperiod, UV-B radiation, and salinity. With Excelle nt lighting, digital controls, and real time monitoring, the 18 new controlled environment chambers will provide the flexible, quality-controlled environment needed by a range of projects, including molecular, whole-plant (including such as areas as leaf physiology and growth dynamics), biotic interactions (e.g., plant-plant and plant-animal interactions and pathogens), population genetics, and ecosystem microcosms. Acquisition of these 18 state-of-the-art chambers will have an immediate and substantial impact on U.S. ecological research, particularly studies on the effects of global change on plants and ecosystems, efforts to scale processes across biological levels of organization, and basic molecular and physiological studies of carbon fixation, allocation, and respiration. This instrumentation will build upon and enhance NSF's investment in ecological research and allow the National Phytotron to address national needs in the biological sciences, including graduate and postgraduate education, and to remain one of the most important centers for controlled environment research in ecology in the United States.